National Center for Atmospheric Research Activities funded by the U.S. Army Research Laboratory (ARL)

This proposal supports the National Center for Atmospheric Research to assist the Army Research Laboratory (ARL)in preparing a written description of the observation-nudging code data assimilation in the community version of the Advanced Research Weather (ARW) Research Forecast model. The document might suggest changes to the available configurations of the ARW. In addition, NCAR will collaborate with ARL on a studey of the relative performances of the observation nudging in the community ARW and the observation nudging in the 4DWX system developed by NCAR Research Aviation Laboratory. The result will be a written at least one journal article. Furthermore, a white paper will be produced conveying best practices for applying the ARW for simulations at gride intervals less than 1.0km.